NeTS: Small: Toward All Videos on Demand

Video-on-demand (VoD) is an attractive service that has
already gained popularity in the Internet by
allowing users to view a video from a large catalog at
any time. A limitation of existing VoD services, both
using traditional design as well as P2P is their inability to support
efficient streamed access to ALL content at high quality,
regardless of demand: not just blockbusters that millions want to
see, but also niche content that has relatively small demand in
comparison to their highly popular counterparts: re-runs of TV shows,
non-blockbuster releases, replays of sporting events, and speeches.

The peer-to-peer (P2P) approach is an effective
solution for scalable content distribution without imposing a
significant burden on a centralized infrastructure. In a P2P-based
VoD system, users receive streamed videos from VoD servers as well as
from the peers. The ability of peers that are viewing the videos to
collaborate with each other reduces the load on serving
infrastructure.

This project extends the design of successful P2P VoD systems to
enable support for efficient delivery of a large, potentially
limitless library of high (movie) quality stored VoD. Regardless of
a video's popularity, a high-quality version will be playable by any
client attached to the network without interruption within seconds of
its request. The research utilizes three design principles: leverage
P2P technologies, implement altruistic cross-content caching and
serving, and utilize playback-point weighted caching strategies.
Results include models that describe desirable caching behavior,
distributed algorithms to implement the desired caching behavior, and
a functional prototype.